Salmon Camp Research Team Renewal Full Proposal

The Oregon Museum of Science and Industry (OMSI), in partnership with the Native American Youth Association (NAYA), Intel Oregon, the National Park Service, and National Oceanic and Atmospheric Administration, will the expand the existing Salmon Camp Research Team (SCRT), a youth-based ITEST project targeting Native American and Alaskan Native youth in middle and high school. SCRT uses natural resource management as a theme to integrate science and technology and provide students with opportunities to explore local ecosystems, access traditional American Indian/Native Alaskan knowledge, and work closely with researchers and natural resource professionals. The project is designed to spark and sustain the interest of youth in STEM and IT careers, provide opportunities to use IT to solve real world problems, and promote an understanding of the complementary nature of western and native science. The original SCRT project included summer residential programs, spring field experiences, weekend enrichment sessions, parental involvement, college preparatory support, and internship placement. The renewal will increase the IT content for participants by adding an afterschool component, provide opportunities for greater parental involvement, enhance the project website, and develop a SCRT toolkit. Students are exposed to a variety of technologies and software including Trimble GeoExplorer XM GPS units, PDAs with Bluetooth GPS antennae, YSI Multi-Probe Water Quality Field Meters, GPS Pathfinder, ArcMap, ArcPad, Terrasync, and FishXing. It is anticipated that this project will serve 500 students in Oregon, Washington, California, Idaho, Montana, and Alaska, proving them with over 132 contact hours.